Mathematical Sciences: Homotopy Spheres and Other Smooth 4-Manifolds

The topology of smooth 4-dimensional manifolds will be studied by classical techniques as well as by new methods from gauge theory. For example, a certain infinite family of homotopy 4-spheres will be studied. This should provide evidence for or against the 4-dimensional smooth Poincare conjecture, one of the most notorious conjectures in topology.